Individual Award

The Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) recognizes outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.

Jonathan F. K. Earle is associate dean for student affairs and associate professor of agricultural and biological engineering at the University of Florida. He has participated in the University of Florida Minority Mentor Program for the past 18 years, and has started new mentoring programs in the college of engineering to attract and retain pre-college students and undergraduates in the field of engineering. Among these, the Successful Transition through Enhanced Preparation for Undergraduate Programs (STEPUP), a transition program for entering minority engineering undergraduate students, became the model for a university-wide program established to address the needs of incoming African-American freshmen across the campus.